New Numerical Methods for Quantum Field Theory and Critical Phenomena

9520978 Sokal Quantum field theory is the central tool employed to study problems, elementary particle and nuclear physics as well as many problems in astrophysics and condensed matter physics. With the advent of high speed computers, many problems in quantum field theory can be modeled and examined by computer simulations. This research proposes to study such problems as well as to develop techniques for more efficient computer simulations. ***